SGER: Externally Controlled Surface Patterning at the Molecular Scale

ABSTRACT
CTS-9816494
H. Monbouquette/UCLA

This project would establish the feasibility of an entirely new approach for creating nanometer-scale, patterned surfaces. A wide variety of chemically heterogeneous surfaces could be created with applications ranging from sensing to quantum electronics. The basic idea involves the use of semiconductor nanoparticles to create patterns on self- assembled organic monolayers. A virtually unlimited variety of chemically functionalized surfaces with characteristic dimension similar to that of the nanoparticles could be built up from theses patterned surfaces